Electric Field, Charge Density, and Structure of Mesoscale Convective Systems

The object of this research is the meteorological interpretation of the observed electrical structure (electric field) of several mesoscale convective systems which occurred in Oklahoma in 1991. Cognate meteorological observations, including airborne radar and cloud physics, were also made by two research aircraft. Particular emphasis will be devoted to the electrical structure, and its meteorological origin, of regions of stratiform clouds and "bow (radar) echoes".